Collaborative Research: The Tuskegee Alliance to Develop, Implement and Study a Virtual Graduate Education Model for Underrepresented Minorities in STEM

Tuskegee University, Auburn University and Alabama State University will collaborate to create the Tuskegee Alliance to Forge Pathways to Academic Careers (T-PAC). This project was created in response to the NSF’s Alliances for Graduate Education and the Professoriate (AGEP) program solicitation (NSF 14-505) for the AGEP-Transformation (AGEP-T) track. The AGEP-T track targets strategic alliances of institutions and organizations to develop, implement, and study innovative evidence-based models and standards for STEM graduate education, postdoctoral training, and academic STEM career preparation that eliminate or mitigate negative factors and promote positive practices for URMs. The T-PAC project will develop, implement, study, and evaluate a model of STEM graduate education focusing on underrepresented minorities (URMs) who are U.S. citizens.

This proposed AGEP-T project will be unique and will have potential to contribute to foundational knowledge about how two Historically Black Universities that focus on baccalaureate degree production will collaborate with a research university to develop, implement and study a model of graduate education and comprehensive professional development for URM graduate students in STEM. The project will also emphasize on-line instruction and professional development. The lessons learned as this project progresses, and the ultimate results from the work, will provide information that will be beneficial to educators, administrators and policymakers, as well as the general public.